A Study of Core Collapse Supernovae

Bruenn, Stephen AST 94-17574 The main topic of this investigation is convection and its relation to the supernova explosion mechanism. Other workers have identified three convective regimes: prompt postshock convection, neutron fingers, and larger macroconvection. In each case the convective regime has been claimed to be crucial for the supernova explosion mechanism. The PI and collaborators will continue to carefully evaluate each of these claims. ***